Ship Operations

The University of Delaware will operate the R/V CAPE HENLOPEN during 1993 as a general oceanographic vessel in support of NSF- supported research projects. The HENLOPEN is a 120' general research vessel owned by the University. The vessel is scheduled for a total of 164 operational days during 1993, of which 130 are in support of NSF-supported investigators. The remaining cruises will support Navy projects. The projects scheduled on the HENLOPEN span all oceanographic disciplines and will utilize the capabilities of the vessel. All operations are along the U.S. mid- Atlantic coast, including Delaware and Chesapeake Bays and coastal water of New York, New Jersey, Delaware and Maryland.//